Cation Diffusion in Garnet and Orthopyroxene

The principal investigator will study cation diffusion at elevated pressure and temperature in the minerals garnet and orthopyroxene. Results of the work will be applied to the interpretation of metamorphic rock history, as well as the history of certain rocks in the Earth's mantle.